U.S.-France Cooperative Research: Diffraction Studies of Molecule-based Magnetic Materials

This three-year U.S.-France award in solid state chemistry and polymers involves Joel S. Miller at the University of Utah and Jacques Flouquet and Jacques Schweizer at the Centre d'Etudes Nucleaires in Grenoble, France. They propose to study the properties of molecule/polymer-based magnets. The objective of their research is to determine the location and magnitude of the total spin density and the crucial magnetic structure using neutron diffraction techniques. The collaboration takes advantage of the complementary expertise of the U.S. and French investigators in chemistry, materials research and physics and the excellent neutron diffraction facilities in Grenoble.